Computer-Based Industrial Instrumentation and Control

In recent decades increased competition has occurred among industries at the international level. An increase in national and regional industrial productivity appears essential in this highly competitive climate. There is a need for new graduates in engineering and engineering technology to be capable of quickly making contributions in industry upon graduation. This project is aimed at providing engineering and engineering technology students with educational experiences in computer-based industrial measurements and control that will allow them to more quickly and more intelligently make their contributions. This project utilizes industrial-quality computers, interfacing equipment, and transducers that are assembled in order that ten experiments are performed in computer control of industrial processes. At least five third and fourth year courses are affected. The award is being matched by an equal amount from the principal investigator's institution.